RIA:Investigation of Macroscopic Models and Microstructures of Ferroelectric Crystals

9308341 Jiang The purpose of this Research Initiation Award is to develop a continuum model which is capable of describing the macroscopic behavior of ferroelectric crystals undergoing phase transformations under the combined influence of thermomechanical loads and electric fields. A unified approach which is valid for transformations induced by mechanical, thermal and/or electrical components is the ultimate goal of this research.